Mathematical Sciences: Reparameterization of Multiparameter Statisical Models

The research activities proposed entail studies in reparameterization of statistical models. Progress in this direction is expected to lead to efficiency in applying techniques of numerical optimization and integration algorithms to asymptotic normal approximation methods used in statistical analysis.